Mathematical Sciences in the Year 2000: Assessment for Renewal in U.S. Colleges and Universities

Extending the work begun under a previous NSF grant, this two-year award will support a comprehensive study of the mathematical sciences at the undergraduate level. Entitled "Mathematical Sciences in the Year 2000," this study will assess of the needs, resources, and opportunities in undergraduate mathematics education. It will also promote dialogue within the mathematical community about these issues and develop recommendations for the "renewal" of collegiate mathematics. Products of the project will include three review papers describing talent, curriculum, and resources. In addition, the award will support the inclusion of undergraduate mathematics in the Mathematical Sciences Education Board's forthcoming "Reports to the Nation."